DISSERTATION RESEARCH: The Evolutionary Puzzle of Warning Coloration

Title: The Evolutionary Puzzle of Warning Coloration
Name: Jeffrey R. Lucas and Adam Robert Boyko

Abstract:
Many toxic animals advertise their distastefulness with bright warning
patterns. These patterns help predators learn to avoid them, but how the
patterns evolve is poorly understood. When a warning pattern first
arises, predators are unfamiliar with it and attack the pattern
disproportionately. Only after many individuals share the new pattern do
predators learn to avoid them. It is difficult to explain how new warning
patterns overcome their initial disadvantage, yet warning patterns have
not only evolved in numerous species, but they have diversified
extensively in many of them.
In the Heliconius genus of tropical butterflies, new warning
patterns have evolved dozens of times in some species but only once in
others. Evolutionary theory predicts that differences in population
structure between these species are responsible for their different
diversification rates, but this theory is unproven. In this study, the
structure of natural populations of Heliconius inhabiting isolated
treefall gaps will be measured. This research will be combined with
computational simulations of warning pattern evolution in Heliconius to
see if evolutionary theory correctly predicts the observed rates of
warning pattern diversification in this genus. Alternatively, differences
in sexual selection between Heliconius species may account for the
different diversification rates by promoting or constraining color pattern
evolution. To examine this possibility, mate choice and mate competition
will be studied in greenhouse colonies of these species.